Theoretical Nuclear Physics

This award supports a U.S.-U.S.S.R. Cooperation project between S. Shlomo at Texas A&M and G. Vagradov and S. Akulinichev at the Institute for Nuclear Research in Moscow. The collaboration focuses on theoretical studies of quarks in nuclei as probed by deep inelastic lepton-nucleus scattering.